Multiple Laser Studies of Gas-phase Molecular Spectroscopy and Dynamics

Professor Chupka's research, supported by the Experimental Physical Chemistry Program, uses multiple laser techniques to excite, probe, and ionize isolated gas phase molecules. Information is obtained on the electronic spectroscopy, excited-state dynamics, and ionization mechanisms for diatomic and simple polyatomic molecules. The basic information obtained is useful for understanding and predicting the dynamics and the interactions of many important systems from discharges and laser media to the atmosphere. Particular attention will be given to the study of resonant multiphoton ionization, with emphasis on the ionization step as a new and versatile way of studying shape and core-excited resonances within an ionization continuum. Other studies will include high resolution optical spectroscopy of small molecules, photoelectron spectroscopy of excited and transient molecular species, electronic and vibrational autoionization phenomena, dynamics of dissociation and predissociation, and the interaction of competing ionization and dissociation channels in excited molecules.